Rapid Assessment of the Exxon Valdex Oil Spill

The project undertakes the visit to the site of the Exxon Valdez oil spill in Alaska on March 24, 1989, for the gathering of perishable data on the immediate and long- term impacts of the oil spill, as well as on the actual emergency response, management and mitigation actions. Cataloguing the ongoing and ensuing documentation will be used to identify gaps in reports and in forthcoming analyses. A multidisciplinary team of researchers will provide the necessary systematic approach to determine the effectiveness of the decision making and support systems used to cope with the disaster.